CAREER: Interrogating Antagonistic Mechanisms of Signaling Cross-talk in Natural Killer Cells

This NSF award by the Biotechnology, Biochemical and Biomass Engineering program supports work to improve our fundamental understanding of how cancer cells escape the cytotoxic action of monoclonal antibodies. Monoclonal antibodies comprise one of the largest classes of cancer drugs that target molecules unique to cancer cells. However, the emergence of resistance to molecular targeted therapies is an increasing, and poorly understood, problem. Without improved understanding of how cancer cells resist the action of molecular targeted therapies, designing effective treatments will remain limited. To improve ultimately the effectiveness of mAbs as cancer drugs, the PI proposes a conceptually novel approach that combines aspects of cellular engineering, immunology, cancer biology, and computationally intensive model-based inference. The research objectives are integrated with educational objectives that aim to promote cross-disciplinary communication among experts and to improve the ability of scientists and engineers to communicate scientific concepts, like how theory and computation are used in scientific practice, effectively with the lay public. It is expected that these aims will have an impact that ranges from local to international. At the local level, the proposed research will provide interdisciplinary training opportunities for graduate and undergraduate students at the interface between multiple disciplines, including biochemical engineering, cancer biology, molecular biology, immunology, and pharmacology. The proposed education aims will also focus outward to create scientists and engineers that can collaborate more effectively across disciplines and, more importantly, that can convey what they do and it’s importance to the lay public. Finally, the fundamental fruits of this research may be applied to improve therapies for cancer, a disease that, in developed countries, kills one in three.